CAREER: Topics in String Compactifications

String theory has emerged as a leading candidate for a quantum theory of gravity, i.e., a
theory that encompasses both quantum mechanics and Einstein’s theory of general
relativity. A remaining challenge is the identification of the appropriate set of background
conditions relevant to the formation of our universe, i.e., compactifying the ten
dimensional string theory (or eleven-dimensional M theory/supergravity) can lead to a very large number of (non-)supersymmetric four dimensional vacua. The projects outlined in this proposal address two important aspects of string compactifications. On one hand, the PI will study how in the context of flux
compactifications one can find vacua which exhibit Standard Model like spectra. He will
also use constraints from cosmology, such as the cosmic microwave background, to put
restrictions on the inflationary type potentials obtained from string theory. The second
approach will be made in studying black hole physics in terms of four- and
five-dimensional BPS solutions. This will provide important
information in trying to understand the black hole information puzzle. This proposal is
very timely since, during the course of the next few years, the Large Hadron Collider
(LHC) at CERN will start running, which will provide interesting information of what
occurs beyond the Standard Model. Furthermore, more accurate observations of the
cosmic microwave background using the PLANCK satellite, will provide even tighter
constraints on the possible
inflationary scenarios arising in string theory.
The goal of the project outlined in this proposal is two-fold: (1) facilitate the continuation
and expansion of a research program in theoretical particle physics, with emphasis on
string theory, at the University of New Hampshire (UNH), and (2) develop a strong
outreach program taking the frontiers of particle physics into local high schools, that
nurtures the excitement young people have for science in general, while promoting
physics in particular. Results from the proposed work will be of interest to several
sectors of the mathematics and physics community. Thus, this project will foster
collaborations and
intellectual exchange between UNH physicists and mathematicians and those from
neighboring, as well as national and international, institutions. The program will
capitalize on the existing infrastructure at the University of New Hampshire for
interactions with high schools and bring cutting-edge science into local high schools.
Specifically, the PI will work with the NSF supported Partnerships for Research
Opportunities to Benefit Education (PROBE)program to organize workshops at UNH for
high school teachers, visit local high schools in order for both teachers and students to
be able to answer questions, and allow interested high school students to visit UNH to
learn about research in theoretical particle physics. The PI
will also participate in a summer program for high school students at UNH, Project
SMART,(Science and Mathematics Achievement through Research Training) and
develop enrichment lectures and activities in Particle Physics and Cosmology for these
high school students.